Acquisition of a High Power Laser for Resonance Ionization Mass Spectrometry

This award provides partial funding to convert an existing 9.inch magnetic sector mass spectrometer into an instrument that uses resonance ionization and incorporates simultaneous multiple isotope detection with electron multipliers. The conversion will build on a laser resonance ionization system developed at the National Bureau of Standards. Development, installation and operation of the instrument will take place at the Department of Terrestrial Magnetism of the Carnegie Institution of Washington. The new system will allow measurements of the Re.Os isotope system at higher levels of precision and sensitivity than possible at present, and its successful development will provide important new research capabilities for the isotope geochemistry research community. Because of the geochemical behavior of the Re.Os system its study provides unique information on the evolution of the Earth's crust, mantle and core.